III: Small: Collaborative Research: Reconstruction of Haplotype Spectra from High-Throughput Sequencing Data

Recent advances in high-throughput sequencing (HTS) technologies provide opportunities to study genome structure, function, and evolution at an unprecedented scale, and are profoundly transforming genomic research.
However, fully realizing the potential of HTS technologies requires sophisticated data analysis methods. This research project is aimed at developing efficient computational methods for reconstructing the full spectrum of haplotype sequences from HTS data. Working in collaboration with molecular biologists from the University of Connecticut Health Center and the Centers for Disease Control, the investigators will develop methods enabling three novel applications of HTS, namely (a) reconstruction of diploid genome sequences, including complete haplotype sequences of each CNV copy, (b) reconstruction of alternative splicing isoform sequences and their frequencies, and (c) reconstruction of viral quasispecies sequences and their frequencies. Major outcomes of the project will include the development of a comprehensive analytical toolkit for these problems, and high-quality open source software implementations that will be made available free of charge to the research community. The project will provide opportunities for participation of undergraduate and graduate students in bioinformatics research at UCONN and Georgia State University, and will especially encourage participation of women and underrepresented groups.